International Conference on "Toward Teraflop Computing and New Grand Challenge Applications". Conference to be heldin Baton Rouge, LA on February 10-12, 1994.

9319110 Kalia We are seeking NSF support for an international conference on high performance computing and communications to be held in Baton Rouge, Louisiana on February 10-12, 1994. The aim of this conference is to promote cross-disciplinary interactions among computational scientists and engineers and experts in parallel computing and visualization. The conference will feature leading scientists form universities and national and industrial laboratories discussing the latest developments in the quest for teraflop computing and gigabit networks, and grand-challenge applications. The conference format will include invited talks and a poster session.